Scalable Parallel Implementations of Declarative Programming Languages

This project will develop compilation and implementation techniques for declarative programming languages on distributed memory architectures. The project consists of three parts. First, it will develop compile- time techniques for cost analysis of mess\-age- passing implementations of declarative languages. Second, it will develop and implement algorithms for granularity control and task partitioning of languages with fine- grained implicit concurrency on distributed memory systems. Finally, the project will develop compile- time and runtime techniques for efficient execution of declarative languages in the context of multi-level memory hierarchies.